Travel: NSF Student Travel Grant for 2023 IEEE Conference on Communications and Network Security (IEEE CNS)

Network security is a key area of research in cybersecurity, and IEEE CNS is a highly respected conference in the field, attracting students, researchers and industry specialists from all over the world. The scope of research papers accepted to IEEE CNS range cover a wide range of topics in the general space of network security.

Providing support to students to attend IEEE CNS will provide knowledge sharing, increased visibility of the students’ research (and awareness by the students of others’ research), and career development opportunities.